Dynamically Variable Rate Speed Coding

(Message inbox:81) Received: from hub.nsf.gov by Note.nsf.gov id aa00531; 27 Jul 92 17:00 EDT Received: by hub.nsf.gov (5.57/Ultrix3.0-C) id AA15662; Mon, 27 Jul 92 16:57:41 -0400 Date: Mon, 27 Jul 92 16:57:41 -0400 Message-Id: <[email]> To: [email] From: [email] Subject: IEEE ABSTRACT ABSTRACT NCR-9215290 IEEE Jerry Gibson and Robert Gray 1993 IEEE international Symposium on Information Theory January 17-22, 1993, San Antonio, TX This award supports travel grants for U.S. scientists and students who will present papers at the IEEE International Symposium on Information Theory to be held January 17-22, 1993 in San Antonio, TX.